Research Initiation Award: Anayltical Study of Ultimate Strength of Tubular X and Y-Joints

The objectives are: 1) to review and compare design codes for the ultimate strength of certain common tubular joints for offshore structures and 2) to analytically study the behavior of the above joints when subjected to loading combinations for which test data is lacking. The strength of tubular joints is important for the design of offshore structures. Design guidelines have been based upon compilations of test data for simple configurations and loading conditions. An analytical approach is necessary to evaluate and extend the design equations to more complex situations, for which little or no test data exists. The finite element method has been applied, but only to cases in which fracture does not occur. The analysis for the proposed work includes a continuum damage mechanics material model that enables it to consider general cases. A series of tubular joints of typical dimensions will be analyzed for ultimate strength under various loads and loading combinations. Load interaction relationships will be evaluated where they exist and proposed where they are lacking.